Acquisition of X-ray Diffractometer for Chemistry and Materials Research

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Major Research Instrumentation Program will assist the Department of Chemistry at The University of California in Los Angeles to acquire a single-crystal X-ray diffractometer with a charge-coupled device (CCD) area detector. This equipment will enhance research in a number of areas including the following: (1) synthesis, reactivity and catalysis of novel metallacarboranes, (2) studies on the total synthesis and functionalization chemistry of fullerenes, (3) N-type dopable conducting polymers for use as transparent cathodes in polymer LED's, (4) transition metals in catalysis, and (5) organic crystal chemistry. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.